NGS: A Distributed Component Repository for Rapid Synthesis of Adaptive Real-Time Systems

EIA-0103709
I-Ling Yen
University of Texas-Dallas

The PI's proposed to develop new innovative approaches and techniques to advance the component-based development ( CDB) of complex applications. The proposed effort in developing advanced CBD techniques spans three dimensions: The research will enable such capabilities by enabling ontology-based repository, code pattern based component composition and tool suite for component comprehension and customization.

Technological advances, such as rapidly increasing computing power and network bandwidth, are enabling advanced high-performance distributed applications that can significantly enhance the quality of education, health care, remote monitoring and control, early warning systems, scientific collaborations, and other high-performance distributed applications.